Synthesis and Mechanisms of Organic Reactions in Supercritical Water

With funding from the Organic Dynamics Program Professors Parson and Kolis of Clemson University will develop new routes to the synthesis of commercially important chemicals using supercritical water as a solvent. This environmentally benign synthesis proposal emphasizes the scope and mechanisms of metal catalyzed oxidations of small organic molecules in supercritical water. A collaborative effort with Professor Myrick at the University of South Carolina will involve in situ Raman spectroscopy monitoring of the reactions taking place in supercritical water. Eastman Kodak will offer advice by identifying critical needs for better methods to produce industrially important compounds. This research will address an area of strategic importance in the chemical industry. The project will explore the fundamental chemistry that occurs when small carbon containing compounds are oxidized in a reactor using supercritical water( a unique form of water at high temperature and pressure) in the presence of metal ion catalysts. The use of supercritical water to replace organic solvents shows promise in the reduction of environmental pollution and the generation of hazardous wastes.